Solving Tactical Logistics Planning Problems Under Uncertainty

This grant supports the development of new theory and models for tactical logistics
planning problems under uncertain demand. The core decision problem focus of this
research lies in optimally matching downstream requirements with upstream
resource capabilities in production and logistics systems. The modeling approach
implicitly accounts for an important structural feature of practical logistics systems,
which requires identifying a unique upstream source facility (e.g., plant, warehouse)
for serving each downstream stage (e.g., warehouse, retailer). This pervasive
structure found in production and logistics systems both reduces downstream
ordering and delivery receiving complexity, and decreases the need for upstream
cross-facility coordination. As a result of these medium-term decisions, short-term
operations planning and execution problems decompose into separate subproblems
(one for each upstream facility), which reduces system-wide operations planning
complexity. This research takes an integrated view of optimizing logistics network
performance, where transportation decisions are considered jointly with other
logistics network decisions that drive overall performance, such as production and
inventory storage decisions, while explicitly accounting for demand uncertainty.

This project will provide an integrated approach for solving tactical logistics planning
problems effectively, thus providing opportunities for streamlining distribution system
costs. In particular, new and effective algorithms will be developed that can solve
medium- to large-size problems to near-optimality with limited computational effort,
and also enjoy a formal performance guarantee. The associated algorithms will be
developed in a general model setting, allowing for specialization to a broad range of
specific problem contexts. In addition, through collaboration with an optimization
software development firm, it will provide a solution methodology that will allow for
the reuse of much of the software developed for one problem in the solution of other
problems, thereby speeding up software development time.